Dynamic Visualization to Drive Learning of Chemistry and Systems Thinking

This project aims to serve the national interest by creating and studying technology tools designed to help college chemistry students better understand complex challenges in areas such as agriculture, energy, and medicine. Although students benefit by thoroughly learning discrete science concepts, many of today’s most important scientific applications require learners to integrate core concepts from multiple disciplines. An important skill, called systems thinking, involves becoming aware of how different parts of a complex system are connected and how they influence each other. This project will develop and test web-based technology tools and learning materials to help students visualize connections within complex systems using a technique called concept mapping. The tools and materials will be designed to help students make connections between foundational chemistry concepts and apply their understanding to develop innovative solutions to complex problems. By learning to apply systems thinking, students will also be likely to gain a better understanding of chemistry’s essential role in addressing a variety of complex, global challenges.

This project will use a systems thinking framework to support students’ engagement with multifaceted challenges in general chemistry and environmental chemistry courses. Because chemistry is a central and connecting science, chemistry courses provide foundations for many other science courses, making it particularly important for chemistry courses to support students in applying what they learn to interdisciplinary systems. Building upon prior work, the project team will refine and test technology tools to scaffold students’ systems thinking. These tools will enable students to create dynamic and interactive Systems Oriented Concept Map Extension (SOCME) diagrams to build connections among different concepts. The interactive tool called the SOCME On-line Construction Kit, or SOCKit, uses force-directed graphs within a web environment to enable the manipulation of concept maps into SOCME diagrams. The project team intends to enhance the functionality of these tools in several ways, including adding path highlighting to allow students to illustrate chains of interactions and enhancing accessibility for low-vision users. The usability, user experience, and computation performance of SOCKit will be assessed throughout all phases of the project. In parallel, the team will develop, implement, assess, and disseminate instructional resources, including SOCKit case studies for specific applications such as wildfires and ocean chemistry; pedagogical approaches; and assessment strategies to reduce barriers for adoption by other instructors. The project will assess students’ learning of chemistry and systems thinking through analysis of student-created SOCME diagrams and interviews, and will iteratively refine the learning materials accordingly. The project team will present webinars and professional development workshops for interested instructors, and the instructional resources will be made available on the web. Collections of annotated, student-created SOCMEs will be included with the resources. The annotated SOCME diagrams will also identify connections between core chemistry content and subsystems outside of chemistry to highlight opportunities for student learning of interdisciplinary, chemistry-centered scientific challenges. The NSF IUSE: EDU Program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Engaged Student Learning track, the program supports the creation, exploration, and implementation of promising practices and tools.